Improving Chemistry Instruction with the Integrated Application of Gas Chromatography, Mass Spectrometry, and Infrared Spectrophotometry

This project will enhance significantly the chemistry education of undergraduate students at Pacific Lutheran University by providing hands-on experience with analytical techniques used in modern chemistry. Acquisition of a computer-controlled gas chromatograph/mass selective detector will enable students in organic chemistry, analytical chemistry, instrumental analysis, and undergraduate research to use the powerful combination technique of gas chromatography/mass spectrometry for separation and identification of components of complex mixtures. The gas chromatograph acquired for this project will also be interfaced with a Fourier transform infrared spectrophotometer recently purchased by the Chemistry Department. The availability of GC/MS and GC/FTIR capability will provide gas chromatographic, mass spectral, and infrared data for the same sample, and will allow students to investigate more complex mixtures of compounds and "real world" problems.